Mechanism of Adsorption, Film Formation, and Conformational Stability of Proteins at Liquid Interfaces

9712197 Damodaran Protein adsorption and film formation at various interfaces play important roles in many biological and technological processes. Despite the enormous importance of this field, fundamental understanding of these processes, especially adsorption at the lipid-water interface, is still elusive. Thus, the main objectives of this project are: (1) to develop experimental approaches to study the kinetics and thermodynamics of the air-water interface; (2) to elucidate the relationship between the molecular flexibility and the equation of state of proteins at air-water and oil-water interfaces; (3) to elucidate the molecular factors affecting competitive adsorption of proteins from binary and ternary protein solutions to the oil-water interface; and (4) to investigate the thermodynamic compatibility and two dimensional phase separation behavior of proteins in a binary protein film at air-water and oil-water interfaces. The outcome from this project is to generate the basic information needed to understand various biological, chemical, and technological processes which involve protein/enzyme adsorption at air-liquid and liquid-liquid interfaces. ***